Mathematical Sciences Computing Research Environments

The Department of Statistics at the University of Pennsylvania will purchase three Hewlett Packard 9000/735 workstations which will be dedicated to the support of research in the mathematical sciences. Each will be configured with the necessary hardware and software to provide a distributed cost- effective floating-point computing system. This system will be used for the following four research projects: (1) Hidden Markov Models, Symbolic Computation and Stochastic Calculus, and Combinatorial Optimization; (2) Surveys, Observational Studies, and Matching; (3) Computational Problems in Statistical Finance; and (4) Time Series Analysis.